Two Topics in Macroeconomics

This project consists of two parts. The first involves the extension of previous research on the foundations of monetary economics. This research will formally address the issues of how exchange takes place and which objects come to play the role of money, or a medium of exchange. Much progress has been made towards understanding the development of both commodity and fiat money in abstract economic models. Further work includes the resolution of some technical issues concerning the theoretical models and even, more importantly, the development of simplified versions of the framework that can be used to address substantive issues, including policy issues in monetary economics. The second part of the study is to investigate some implications of explicitly incorporating a household production sector in models of macroeconomic activity. Some preliminary analysis indicates household production can have an important qualitative and quantitative impact in an otherwise standard model of the business cycle. Future work includes the analysis of these business cycle implications, and the investigation of the impact of household production in theories of unemployment, economic growth, and public finance.